REU: Experimental and Theoretical Investigations of Granitic Phase Equilibria

The principal investigator will study the thermodynamic mixing properties of felsic silicate melts, utilizing experimental and theoretical techniques. The chemical systems to be studied are feldspar-quartz-iron silicate. The long-range goal is to further our understanding of the role of phase equilibria in dictating the genesis and evolution of felsic magmas.